High Field Nuclear Magnetic Resonance Spectrometer

The aim of this project is a significant increase in the quality and timeliness of science education offered at California Polytechnic State University. The project is providing a bridge between the discipline gaps in biochemistry, organic chemistry physical chemistry and polymer chemistry by incorporating a High Resolution Fourier Transform Nuclear Magnetic Resonance (FT-NMR) Spectrometer into the Chemistry Department. FT-NMR is an important instrumental technique which is widely used in all areas of chemistry, materials science, biology and medicine. This instrument is being used routinely for teaching purposes in sophomore, junior and senior courses, where modern NMR experiments can be incorporated into the curricula to educate students, develop their powers of critical thinking, and encourage them to pursue careers in science. The instrument is also enabling undergraduate student to carry out meaningful individual research projects with faculty advisors in each of the above mentioned areas. The project is having a major impact on the vitality and productivity of the Chemistry Department. The University is contributing in excess of 300% of the NSF funds.